Travel: Doctoral Consortium at the 25th International Conference on Autonomous Agents and Multiagent Systems

This project supports travel for students from US institutions to participate in the Doctoral Consortium (DC) program at the 25th International Conference on Autonomous Agents and Multiagent Systems (AAMAS 2026). AAMAS is the premier international conference in agents and multiagent systems. This consortium is oriented on research and career development for students who have identified their doctoral topics and are embarking on independent research. As Artificial Intelligence (AI) and multiagent systems become more prevalent, exposing students to the latest advances in intelligent agent technology will have a significant impact on their career trajectory on several domains, including infrastructure, logistics, manufacturing, transportation, the digital economy, and other sectors of national importance.

The Doctoral Consortium program will provide significant opportunities for the students to strengthen their career and professional development. Students will present and discuss their research, receive mentoring from senior researchers, participate in a career panel to discuss career choices in industry and academia, and engage in discussions to build research collaborations. The Doctoral Consortium program also includes tutorials given by leading researchers on the latest developments and advances in AI and multiagent systems. Students will also benefit by attending the full AAMAS conference, including the demonstration track on AI and multiagent systems technology. These activities will play an important role in fostering the next generation of AI scientists and practitioners by exposing students to cutting-edge research in AI, building professional networks, and expanding research engagement.